NCSAnet

This project supports networking at NCSA for NCSA and NSFNET users in the area around the University of Illinois. This will assist NCSA in providing the requested services for the institutions connected to the NSFNET through NCSA.***